Computer Based Media and Lab Exercises for a Lower Division Oceanography Course

Oceanography is taken by 25% - 40% of our first year class, and it may be the only science course many of these students experience. As a large class, it has high visibility on campus and presents a vital challenge in efforts to provide each student with a dynamic and exciting learning experience. Funds are requested to support the creation of a set of interactive Macintosh computer based laboratory tutorial/simulations, a comprehensive help database, and an associated workbook. This material will be integrated with the existing graphics database and computer automated quiz serving and fading software, and it will be available on CD ROM and Internet to other colleges and universities teaching oceanography. Many of the ideas and approaches developed for this project also will be useful to others teaching large classes in other disciplines. The goal is to make this large class experience every bit as exciting and dynamic as that in smaller classes by creating material that will truly engage the students in the subject matter, supported by a class structure that encourages student responsibility and integrative thinking.